Expanded Plant Growth Facility for the University of GeorgiaDivision of Biological Sciences

Funds are requested for the purchase and construction of two greenhouses with an attached headhouse and an indoor environmentally controlled growth facility consisting of three growth rooms and 12 growth chambers. The greenhouses are designed to be easily modified to conform to potential future regulations for the propagation of transgenic plants. Three rooms within one of the houses will be equipped with refrigerated cooling to provide temperature reduction during summer months. The growth rooms and growth chambers will be located within the University's new BioScience Complex. They will provide relatively large amounts of environmentally controlled space for routine plant growth. The chambers will provide greater and more precise ranges of temperature (100 to 400 C) and light (0 to 1200 micro mol/photons m-2 s-1 at growth height) for more rigorously defined growth requirements. Major projects utilizing the proposed new facilities include: hybridization in natural plant populations (Arnold); regulation of gene active in later embryogensis (Galau); breedng structure and gene flow in plant populations (Hamrick); genetic and environmental control of flower development (Malmberg); differential expression of two multigene families (Meagher); environmental effects on heat shock and auxin regulation (Nagao); phytochrome structure and functional relationships in transgenic plants (Pratt); photosynthetic acclimation in C3 plants (Sage); transposable elements in maize and rice (Wessler); and moss phylogeny and paternity in milkweeds (Wyatt).